A Geography Microcomputer Laboratory for Enhancement Undergraduate Courses

9352358 Thompson This project is designed to upgrade microcomputer laboratory facilities in geography. Most of the facilities are utilized in the undergraduate geography curriculum, principally at the intermediate and advanced levels, and impact various courses. Undergraduate students have access to personal computer workstations equipped with various graphics and text peripherals. Various special-purpose computer software packages and updates are also available. The project has improved computing facilities and maintains and en- hances high-quality instruction of undergraduate students in the discipline. ***